Molecular and Biochemical Determinants of Floral Scent Production in Antirrhinum majus

Volatile compounds play an important role in plants as insect attractants,
repellents and signal molecules. Floral scent is a key modulating factor
in plant-insect interactions and plays a central role in successful
pollination, and thus in fruit development of many crop species. Despite
the economic importance of floral scent for plant reproduction, little is
known about the molecular mechanisms involved in the production of floral
volatiles. The objectives of this proposal are to use molecular, genetic,
and biochemical approaches to understand how production of volatiles could
be manipulated in plants using floral scent as a model system. Although
production of scent volatile compounds appears to be very widespread in the
plant kingdom, the information about their biosynthesis and regulation is
limited and based to date on the analysis of a single model system -
Clarkia. Bee-pollinated Antirrhinum majus (snapdragon) will be used as a
model system for this study due to its important advantages over the
Clarkia system such as a well developed genetic map, transposon gene
cloning system, available transformation protocol, and rhythmic emission.
Floral scent is often a complex mixture of low molecular weight compounds,
which are mainly distributed within three groups: fatty acid derivatives,
benzenoids and isoprenoids. Esters of such compounds are among the most
common in many plant species where they contribute significantly to the
total floral scent output. However, the biochemical pathways, enzymes and
genes controlling the biosynthesis of volatile esters in plants have
received little attention. The focus of the proposed research is on the
molecular mechanisms of the synthesis of the volatile ester methylbenzoate,
an important insect attractant and a major component of snapdragon floral
scent. This research specifically addresses the questions of how plants
regulate the production of volatile esters and how pollination and
circadian rhythm affect scent emission at the molecular level. The
availability of a cloned S-adenosyl-L-methionine:benzoic acid carboxyl
methyltransferase (BAMT), the final enzyme in the biosynthesis of
methylbenzoate, recently isolated in the PI's lab, provides a unique
opportunity to make a detailed study of the regulation of floral scent
production. The mode of expression of BAMT gene will be characterized in
different tissues during flower development to determine the molecular
mechanisms (transcriptional, translational or post-translational) involved
in the regulation of methylbenzoate emission. Special attention will be
paid to comparative analyses of Antirrhinum varieties that emit
methylbenzoate with
non-emitting plants. To determine the specific molecular and biochemical
mechanisms that are
responsible for the postpollination changes in floral scent production in
plants, the levels of BAMT mRNA, BAMT protein, BAMT activity, emission, and
the possible accumulation of methylbenzoate inside the cells will be
determined at different times after pollination. Overall, this research
will lead to significant contributions to
understanding of the fundamental processes underlying the formation of
floral scent. While this proposal is designed primarily to address
fundamental questions about molecular mechanisms controlling production of
volatiles in plants, the results obtained may ultimately find application
in agriculture and horticulture. An understanding of the enzymology and
regulation of metabolic pathways (including developmental changes and
subcellular compartmentation), obtained in these studies, will provide the
knowledge for engineering plants with improved scent quality to increase
the attraction of pollinators to flowers and thereby increase the yield of
important agricultural crops.